US-Switzerland Dissertation Enhancement: The Effects of a Buried Ice Lens on Snow Microstructure

0406468
Smith

This U.S.-Switzerland dissertation enhancement project addresses the effects of buried ice layers on snow microstructure and metamorphosis. The investigations will be performed at the Swiss Federal Institute for Snow and Avalanche Research under joint mentorship of Freeman M. Smith of Colorado State University and Professor Martin Schneebeli of Switzerland. The graduate student, Ethan M. Greene, will develop a digital model of snow microstructure and perform analysis of thermal conductivity as well as mechanical property measurements. The project takes advantage of specialized equipment in Switzerland that allows 3-D image reconstruction of snow.

The study itself addresses research related to the occurrence of avalanches. Avalanches result when snow metamorphism produces weak snow layers. Field data on environmental factors, physical conditions that cause avalanches as well as snow and ice formation are limited. Through the proposed laboratory simulations, Mr. Greene and his mentors propose to simulate the conditions leading to weaknesses in the snow structure and to isolate the impact of thermal changes on the ice layer and snow microstructure. The research will advance understanding of causes of avalanches and in improved avalanche forecasting. The graduate student will benefit from an international experience early in his career and connections with a leading international institute in his field.